Commutative Algebra, Algebraic Geometry, Computation and Statistical applications

David Eisenbud will perform research on a number of
areas in which algebraic geometry mixes with homological commutative
algebra. One of these is the study of the Castelnuovo-Mumford regularity
of high powers of ideals. For an ideal in the homogeneous coordinate ring
of a projective variety that is of finite colength and is generated by forms
of a single degree, this "assymptotic regularity" is connected with the
properties of fibers of the corresponding map of varieties, and Eisenbud
will use this connection to investigate generic projections. A second
area is the study of schemes that are 2-regular. This work builds on the classification
for reduced schemes that was recently completed by Eisenbud, Green, Hulek and
Popescu. A third area has to do with the computation of higher direct images using
exterior algebra methods. Eisenbud will study certain varieties that appear naturally
in the deformation spaces of bundles in this way. All these areas are supported
by computations based on Groebner basis methods. Eisenbud will collaborate
with Stillman and Grayson in the development of the Macaulay2 program, which
is currently the best tool for computations in projective geometry. Finally, Eisenbud
will collaborate on a project with Diaconis, Holmes, and their students involving the
application of techniques in algebraic geometry to statistics.

An algebraic variety in complex n-space is a set defined by
the simultaneous vanishing of a collection of polynomial functions
of n variables. Many of the important geometric objects that appear
in mathematics can be defined this way. One way to study an algebraic
variety is to ask for the dimension of the vector space of polynomials
of degree at most d that vanish on the variety, as a function of d. This
is called the Hilbert function of the variety. David Hilbert showed how to
compute this function, and refine it, by computing something called a
free resolution of the variety. My work uses such free resolutions to study
varieties in many contexts. For example, if a variety of dimension n is embedded in
a vector space of dimension n+1,
then the variety is defined by just one equation, a relatively simple case.
Most varieties of dimension n can not be embedded in this way, but any
variety of dimension n can be mapped linearly onto a variety of the
same dimension in an n+1 dimensional space. One of the questions I will
study is the difference between the original variety and its image, for the
best possible embeddings.